Study Feasibility of Accreditation of Programs in Computer Information Science/Systems/Technology

This project will critically examine the potential for accreditation of programs in computer information science/systems/technology, including programs that cover essentially this material, but may have chosen to use a somewhat different title. This will include developing a set of criteria which could be used for accrediting such programs, the procedures for such accreditation, and surveying schools and employers to get their feedback as to both the value of such accreditation and any adjustments they would desire in the criteria and procedures that are developed.